A Standard Biostratigraphic Sequence for the Devonian of Western North America

Proposed research in the Devonian of the western U.S. involves five areas of endeavor. 1. Brachiopod systematics: one new brachiopod genus will be described and illustrated. In addition, the section on Silurian and Devonian spirifers will be prepared for the revised Brachiopod Treatise. Precise range data will be collated for Devonian brachiopod general. 2. The Middle and Upper Devonian faunal sequence will be studied and refined by synthesis of five measured sections and 229 fossil samples. Zonal refinement is anticipated near the top of the Middle Devonian. 3. The depositional history of an interval of the Late Devonian spanning the Frasnian-Famennian boundary will be studied in central Nevada. Quartz sands were deposited in the outer shelf basin at that time as a result of platform emergence. 4. It is intended to analyze geology in two critical areas along the frontal margin of the Roberts Mountains thrust from data gathered during the last 14 years. 5. A review paper is planned for preparation on the Paleozoic of the western U.S.